Interpreted Environment for C++ Software Development

9360783 Montanaro This project will create a hybrid environment to provide the advantages of both interpreted and compiled languages. The environment will provide a powerful, rapid application development capability, and will provide a mechanism to easily create C++ applications for parallel and distributed computing architectures. Additionally, the project will expand on the growing number of C++ class libraries. The project will develop a technology to support rapid application development, and the creation of distributed and parallel computer applications. It will also include application domain experts who are not C++ programmers. ***